POWRE: Geometric Algorithms for Landmark-Based Mobile Robot Navigation

EIA-9806108
Briggs, Amy J.
Middlebury College

POWRE/CISE: Geometric Algorithms for Landmark-Based Mobile Robot Navigation

This work is a unique opportunity for the PI, who is a young researcher in a small liberal arts college, to develop a research program in a promising new domain. The objective is to develop geometric algorithms for mobile robot navigation based on visual landmarks. The specific concern is for the development of efficient new geometric algorithms, new strategies for navigation using visual landmarks, partial model building by geometric learning, and considerations of real-world uncertainty. The long-term goals of the research include the development of task-level strategies for navigation in an environment without a global map using landmarks and simple landmark adjacency maps.